Special Programs: Workshop on Neutron Stars in Supernova Remnants

Slane, Patrick
AST-0122331

This award will be used to partially support a workshop "Neutron Stars in Supernova Remnants" to be held from August 14 to 17, 2001 in Boston, MA. At the conclusion of the workshop, the Organizing Committee will edit and publish electronically manuscripts submitted at the meeting.
***